Mathematical Sciences: 1989 Summer Seminar on 'The Mathematics of Random Media'

This project is the twentieth AMS-SIAM Summer Seminar in Applied Mathematics, which will be held May 29-June 9, 1989 at Virginia Polytechnic Institute and State University, Blacksburg, Virginia. The seminar is sponsored jointly by the American Mathematical Society and the Society for Industrial and Applied Mathematics. The topic is "The Mathematics of Random Media", and speakers will present recent results on stochastic processes with special emphasis on effective medium theory, interactive particle systems, and diffusions and wave propagation in random media. In addition, there will be survey lectures to orient nonspecialists in these fields. The proceedings of the conference will be published by the American Mathematical Society in its "Lectures in Applied Mathematics" series. There is some financial support available.